Conference on Neural Control of Behavior, University of California, February 9-12, 2006

This three-day conference will provide a forum for in-depth dialogue on
innovative research in the area of Neural Control of Behavior. The first
two days will be devoted to a symposium that will be open to the scientific
community. There will be four sessions: (1) Neurobiological Basis of Social
Behavior; (2) Fear and Anxiety; (3) Sleeping and Dreaming; (4) The Aging
Brain. The speakers represent a balance of species used (invertebrates to
mammals), experimental approaches used (from molecular and cellular to
behavioral levels of analyses), gender, and career level. The third day of
the meeting will be devoted to a workshop of speakers and invited conference
participants, where they will explore ways in which information discussed
during the symposium can be used to take their respective research areas in
new directions. This conference aims to: Bring together researchers who are
asking similar questions, but are using different species and different
experimental approaches; Promote the use of simple systems for addressing
complex biological problems; Promote interaction between junior scientists -
women in particular - and established investigators and leaders in the
field; Provide a high-quality educational forum, in an intimate setting,
that is conducive for in-depth discussion and learning between trainees and
more senior researchers. A Meet-the-Speaker luncheon is aimed specifically
at trainees, giving them the unique opportunity to interact with
internationally recognized experts in an intimate setting. A Poster Session
also gives trainees and more senior researchers the opportunity to highlight
and discuss their own work. The speakers use modern, cutting-edge
technologies for addressing problems in the area of Neural Control of
Behavior. By bringing together these researchers, and giving them a forum
for discussing their work, the message can be effectively spread that these
modern techniques are being used with great success in a wide variety of
animal systems. This conference will provide an important interdisciplinary
communications-mechanism for advancements in the neuroscience community.